Improvement of Instructional Resources in Mathematics

Improvement of Instructional Resources in MathematicsThe instructional resources of the Mathematics Department have been strengthened by the addition of a computer laboratory consisting of IBM PS/2, Model 55 SX computers running the computer algebra system Derive. Students are able to work on more realistic problems at their own pace and deepen their understanding of the concepts of calculus by performing graphical